Site Research Experience for Undergraduates in Neuroscience

This award provides funds to establish an interdisciplinary site REU program in Neuroscience at the University of Illinois Neural and Behavioral Biology (NBB) Program, a Ph.D. granting interdisciplinary program begun in 1970. The common focus is neuroscience, the interdisciplinary field that seeks to understand the function of nerve cells and systems from the molecular and cellular levels to that of behavior. Faculty in the program that demonstrate an extensive history of involvement of undergraduate in laboratory research have been selected as co- Principal Investigators. Collectively, faculty in NBB have sent about 75 undergraduates who worked with them into scientific careers, including faculty positions at Harvard, Yale, Chicago, Stanford, and Pennsylvania. Even greater numbers have gone on to careers in Medicine and other professional Doctorate-level fields. Neuroscience subfields in which research experience will be offered included behavioral neuroscience, neural development and plasticity, molecular, cellular and genetic neuroscience, neurophysiology, neuroanatomy, computational neuroscience, and cognitive neuroscience.